Presidential Young Investigator Award

This Presidential Young Investigator award deals with research directed toward the synthesis and characterization of advanced polymeric materials. Among the topics to be investigated are the synthesis of a new class of photodoped conducting polymers, of inorganic-organic composites, and of transition-metal catalysts for the living polymerization of monomers.